Scholarships for Computer Science and Software Engineering

Fifteen students majoring in computer science or software engineering are receiving scholarships annually. These academically-talented students are financially needy and the scholarships are allowing them to undertake fulltime study. The university in cooperation with local business and industry is providing internship and cooperative work experiences, career guidance and opportunities, reviews of software projects and honors theses, and classroom discussion regarding real world practices. These activities are
improving the academic and professional performance of the scholars and increasing the number of students continuing on to graduate school.